Non-linear equations in analysis and geometry

This proposal is concerned with two main projects. The former focuses on
various questions in sub-Riemannian geometry and in the closely connected
analysis of sub-elliptic pde's and systems. The PI proposes to investigate
the classification of non-negative entire solutions to non-linear
equations in groups of Heisenberg type, and compute the best constants in
the Folland-Stein Sobolev embedding. This program is instrumental to a
possible attack of the compact CR Yamabe problem in the open case of CR
manifolds of co-dimension higher than one. The geometric case of such
embedding will also be investigated along with the relative isoperimetric
inequalities. The PI also proposes to study the regularity of minimal
surfaces, the question of traces on lower dimensinal sub-manifolds of
functions having integrable horizontal derivatives. The basic boundary
value problems, such as the Dirichlet and the Neumann problem will also be
investigated, and a theory of variational inequalities and regularity of
"free boundaries" will be developed. The second project is concerned with
various problems in which symmetry plays an important role. One of them is
concerned with the determination of the extremal functions in the
Tomas-Stein restriction theorem for the Fourier transform. Other problems
are connected with symmetry in the exterior obstacle problem, a conjecture
of De Giorgi connected to minimal surfaces, and symmetry in the evolution
of surfaces driven by mean curvature.

Partial differential equations and systems formed by the latter are the
basic laws which describe most natural phenomena. An understanding of the
physical world also requires grasping the underlying geometric structure
of the latter in its various forms. The present proposal belongs to that
mainstream of research which sits at the confluence of the theory of
partial differential equations and systems, both linear and non-linear,
and their connections with an emerging type of geometry, called
sub-Riemannian geometry. Both theories have witnessed an explosion of
interest in the last decade and they continue to attract the interest of
various schools of mathematicians both nationwide and abroad. Another main
part of this proposal is devoted to the study of physical and mathematical
problems in which symmetry plays an important role. Symmetry is present
everywhere in nature, a remarkable instance being the fundamental laws
of gravitation and electrostatic attraction. The study of conditions under
which a given natural phenomenon develops symmetries is both important for
its practical consequences (the presence of symmetries
drastically reduces the human effort) and for its implications
in the furthering of our knowledge.